Enhancing Math and Science Instruction: A Comprehensive Study of the Role of State Education Departments and Other State Agencies

9355804 Timar *** The purpose of the study is to provide policymakers, particularly those engaged in improving math and science education in the U.S. with and understanding of the current and potential role of state departments of education and other state agencies in shaping reform efforts. the study assesses the capacity of states to lead and support science and mathematics education in their schools. ***